NWEST Values: A Multidisciplinary Database for Northwest Issues in Environmental Science, Technology and Values

This project will develop an interdisciplinary, on-line database on environmental issues in the U.S. Northwest, for use by teachers, scholars, researchers and members of the public who wish to understand their ethical, legal, social and scientific aspects. Called NWEST Values, the database will include summary, review, and related publications from a wide range of specialists working on social, legal, and scientific questions in the environment, and full-text reports from government agencies. The project team will collaborate with researchers in the humanities, social sciences, biological and physical sciences, law, mining, agriculture, forestry, and environmental engineering. It will compile an extensive annotated bibliogaphy of interdisciplinary references. The database will specifically include a large amount of information relating to Native Americans and to rural concerns. Information will be available on-line through the CARL System that links over 350 libraries nationwide, through Internet worldwide, and diskettes and paper copies of the material for those without computer access.